National Kidspace Partnership Program...

The objective of this project is to provide a complete package of KIDSPACE hands-on science experiences to small and developing science centers across the country through the National KIDSPACE Partnership Program. This project will allow twelve (12) selected science centers to implement a complete, proven education package geared toward young children at a fraction of the cost of starting one from scratch. This project will provide comprehensive training to a large core of educators within the science center field, and will support continued research into the informal science education of young children through an original Research Study and the formation of a national User's Group. Best of all, this project will generate a wellspring of invaluable science-play connections for hundreds of thousands of children to tale with them into adulthood.